The Role of Bacterial Chemotaxis in the Biodegradation of Naphthalene in Porous Media

Aitken 9807666 There is considerable interest in methods of remediating contaminated soil and ground water by in situ processes, particularly if remediation can be accomplished through natural processes such as biodegradation by indigenous microorganisms. To properly evaluate and develop in situ bioremediation methods, it is important to understand the dominant physical, chemical and biological processes. Biological processes are perhaps the least understood of these. The investigator and his colleagues focus on the potential role of bacterial chemotaxis in the biodegradation of common soil pollutants in porous media. They study the biodegradation of naphthalene, a common soil pollutant, by Pseudomonas putida G7 in a model porous medium consisting of uniform glass beads. The effect of chemotaxis is evaluated by comparing the rates of mineralization of naphthalene by the chemotactic wild-type strain and by an immotile or non-chemotactic mutant strain with the same inherent kinetics of naphthalene degradation as the wild-type. A mathematical model is constructed that incorporates the most significant chemical and biological phenomena in the experimental system. The model is used to quantify the chemotactic and random motility coefficients of the organism as a function of the size of the glass beads, and to evaluate the relative influences of random motility and chemotactic motility in naphthalene biodegradation. Chemical contamination of soil and ground water is an enormous problem in the U.S. The cost of cleaning up contaminated sites can be reduced dramatically if the contaminated materials do not have to be excavated or pumped to the surface for treatment or disposal; consequently there is great interest in taking advantage of processes referred to as "natural attenuation." Many bacteria found in the subsurface are known to be able to degrade a variety of chemicals, but the behavior of bacteria in soil is relatively poorly understood. A commo n property of many bacteria is chemotaxis, an ability to move in response to the presence of a chemical. However, the potential role of chemotaxis in the biodegradation of pollutants in soil has not been explored before. It is likely, for example, that bacteria able to swim towards the sources of chemical contamination are able to degrade the contaminants faster than those bacteria unable to do so. The investigators in this project conduct experiments with a simulated soil environment and mathematical modeling techniques to evaluate the potential role of chemotaxis in the biodegradation of a pollutant found at many contaminated sites. An improved understanding of the role of chemotaxis will permit better characterization of the feasibility of natural attenuation processes, and may permit the development of strategies to accelerate the in situ treatment of contaminated sites that take advantage of bacterial chemotaxis.